Cytochrome c and Apoptosis

Cytochrome c and apoptosis activating factor-1 (apaf-1) are the judge and
jury of mitochondrially-mediated programmed cell death (apoptosis). Their
interaction seals a cell's fate by launching a tightly controlled program that ends
in cellular disintegration, and imbalances in this regulation are associated with
cancer, neurological diseases, and heart disease. Given the biological and
medical relevance of this protein-protein reaction, it is surprising that its
molecular basis is unknown. The broad long-term goal of this project is to
determine the molecular basis for the interaction between cytochrome c and
apaf-1. The main hypotheses are: a) Cytochrome c uses the same cationic
patch to interact with apaf-1 and its redox partners. b) Apaf-1 uses specific
anionic patches to interact with cytochrome c.
The specific aims are 1) Quantify apaf-1 / cytochrome c binding, 2) Identify
probable binding sites on apaf-1 and cytochrome c, 3) Test the binding sites.
Sedimentation equilibrium methods will be used to quantify binding, but
alternative methods are also discussed. Probable binding sites on the WD repeat
domain of apaf-1 have been identified in modeling studies, and the redox-partner
binding site on cytochrome c has been known for many years. The sites
will be tested by using site directed mutagenesis. To ensure that biologically
significant data are obtained, the variants will first be assessed by using a quick
and biologically relevant caspase activation assay. Once the biologically
relevant residues have been identified, the biophysics of the variants will be
characterized. Circular dichroism spectropolarimetry will be used to assess their
integrity. Sedimentation velocity experiments on apaf-1 variants will be used to
assess their effects on intraprotein interactions. Sedimentation equilibrium
techniques from aim 1 will be used to quantify their effects on the free energy
and stoichiometry of complex formation.